Interactions Between Neurons and Merkel Cells in vitro

A pivotal issue in developmental neuroscience is how nerve cells choose the appropriate target. This issue will be investigated in a culture system of Merkel cells, the mechanosensory cells of the rat snout. These cells are normally innervated by sensory neurons of the trigeminal ganglion. The investigator has observed that, in culture, sensory neurons selectively grow onto islands of Merkel cells and establish territories that exclude neurites from other sensory neurons, while sympathetic neurons actively avoid Merkel cells. Studies will be done to examine the hypothesis that sensory neurons specifically recognize and respond to molecules on the surface of Merkel cells, and that sympathetic neurons actively avoid Merkel cells as the result of molecules on the surface of Merkel cells that induce neurite retraction. Classes of cell surface molecules involved in the interactions between Merkel cells and neurons will be identified. Time lapse videomicroscopy will be used to investigate the dynamic events involved in the formation of neuronal territories on Merkel cells. The role of nerve growth factor in formation and maintenance of neuronal territories on Merkel cells will be studied. These studies promise to provide information on molecules important to the formation of neuronal specificity.